Social Perception in Negotiation

This is an ambitious proposal to conduct empirical and theoretical research on social judgment in negotiation behavior. Despite the importance of negotiation, substantial evidence suggests that negotiators frequently fail to attain mutually beneficial outcomes. Inefficient negotiation processes reduce society's resources and productivity, and increase society's conflicts and self- destructiveness. The purpose of the proposed research is to examine why negotiators often arrive at sub-optimal decision strategies. A theoretical model, the Social Perception model, is presented that focuses on communication, judgment accuracy, behavior, and outcomes. The major prediction from the model is that the accuracy of negotiators' perceptions of the other party determines negotiation outcomes. Moreover, inaccurate judgments may result from insufficient information exchange, failure to attend to relevant information, or failure to combine information to make a judgment about the other party's interests. Four research studies are proposed to examine implications of the model. The experiments promise to advance our understanding of negotiation, to contribute to sounder theory, and to identify factors that will improve the outcome of negotiation.